III-COR+RI: Novel Statistical Models and Algorithms for Network Modeling, Mining and Reverse Engineering

In many problems arising in biology, social sciences and various other
fields, it is often necessary to analyze populations of entities
(e.g., molecules or individuals) interconnected by a network. This proposal
intends to develop new statistical formalisms and computational methodologies
for modeling and inference the semantic underpinnings of
network entities, and investigate how these aspects influence
the network topology and its temporal evolution during biological and
sociological processes. It will also study a number of yet unexplored
topics such as discriminative learning of network structures,
recovering temporally evolving network sequences, and related theoretical
issues.

The proposed research is envisaged to help address big-picture problems
such as: 1) Hidden Identity/Function Induction, e.g., what role(s)
do individuals play when they interact with different peers under different
conditions? 2) Structural/Organizational Forecast, e.g., whether and how
changes of molecular functions lead to alterations of biological pathways?
3) System Robustness, e.g., how a network adjusts to
perturbations caused by exogenous intrusions?

This research straddles statistical learning, social/biological sciences
and data mining. The intellectual merit of the proposed work lies in both
the algorithmic and theoretical novelties of the methodological developments,
and the analysis of specific social and biological networks and various other
applications enabled by the proposed methods. The main novelties include:
(1) new Bayesian formalisms for latent space modeling of node
functions and network linkages, which capture the functional/behavioral
context of network entities; (2) novel temporal extensions of exponential
random graph model for network evolution, and inference/learning algorithms;
(3) algorithms for reverse-engineering temporally rewiring networks from
longitudinal node attribute data; and (4) novel discriminative learning
algorithms for learning very-large networks from partial samples of the
network and relevant learning theory. These methods will be applied to
the ENRON email network to explore the behavioral patterns under various
business operation conditions, and to analyze a longitudinal molecular
abundance profile measured from breast cancer cells to infer (alterations of)
networks under carcinogenic or tumor-suppressing environments. The results
are expected to advance the principles and technologies for network analysis,
and enable a wide-range of applications of broader interests.

The proposed research is also expected to have broad educational and
societal impact. As an interdisciplinary research effort, this project will
provide rich opportunities for multi-disciplinary educational and research
training, at both undergraduate and graduate levels. A thorough understanding
of social network structures in human populations can have significant impact
on important issues such as policy making or technology adoption. Knowledge of
cellular networks and its changes in response to exogenous interventions can
help reasoning disease causes and designing therapeutic schemes. Our methodological
and software deliverables can potentially facilitate such studies, improve the
cost-effectiveness of network data collection, and foster future development
in this area.

More details of this project can be found at http://www.cs.cmu.edu/~epxing/projects/network.htm